Electrically-Assisted Flame Aerosol Synthesis of Nanoparticles

Abstract CTS-9619392 S.E, Pratsinis U. of Cincinnati A combined experimental and modeling investigation of the effect of electrical charging on the formation of ceramic nanoparticles in flames will be undertaken. Experiments have shown that the particle size can be controlled within 1 nm in specific ranges of particle properties and flame characteristics. Electric fields are created in region of particle formation at crossflow with flame gases, and the resulted particles are charged by using a corona discharge to reduce agglomeration. In-situ Fourier Transform Infra Red spectroscopy will be performed to measure the temperature of gases and particles in collaboration with the Case Western Reserve University (Prof. P. Morrison). The evolution of the particle size and structure along the flame axis will be measured using rapid thermophoretic sampling in collaboration with the Case Western Reserve University (Prof. C.M. Magaridis). Particle and concentration characterization will be performed with a differential mobility analyzer, scanning and transmission electron microscopy, X-ray diffraction and specific surface area analysis. A model including particle nucleation, surface growth, coagulation, sintering and charging in three-dimensional conditions will be developed. The home university and the Ohio State will provide matching funds in total value of $169,600 for this project. If successful, this project ill provide a better fundamental understanding of particle formation processes in flames, a data base for further modeling efforts, and overall an approach to synthesise non-agglomerated nanoparticles at high rates and at a relatively low cost.